Embeddable measurement models for cognitive psychometrics

This project makes use of recent progress in cognitive science and develops mathematical representations of how humans normally make quick decisions in order to measure the mental sharpness and decision preferences of many people at once. Outputs from this project assists efforts to detect early signs of memory loss or dementia and to detect the effects of fatigue on decision making and safety.

The project develops, implements, tests, and applies hyper-efficient proxy models for process-based cognitive models. The PIs develop computationally lightweight versions of well-known cognitive models that are most useful in large-data applications where computational efficiency is at a premium and that integrate cognitive process modeling into various higher-order tools and algorithms.